Research Experience for Undergraduates in Electrical Engineering at the University of Houston

This award provides funding to the University of Houston (UH) for a Summer 2001 REU Site in Electrical and Computer Engineering under the direction of Dr. Frank J. Claydon. The proposed program will build on the UH "in-house" self-funded REU program conducted during Summer 2000. The program is designed to infuse 12 undergraudate students with enthusiasm towards graduate level education and careers in research. At least 50% of these students will selected from institutions other than UH. Institutions with significant Hispanic or African-American student populations will be particularly targeted for student recruitment. Each student will undertake a specific research project, and a faculty advisor (participating in the REU program) will work with the student to develop his/her research skills. An essential element of the program will be its emphasis on professional development of the students (e.g., paper writing and technical presentations).